Support of Students Attending OMCOS 8, Santa Barbara, California, August 6-10, 1995

With this award, the Synthetic Organic Program is supporting student attendance at a meeting entitled "Organometallic Chemistry Directed Towards Organic Synthesis "(OMCOS-8). The award will help subsidize 33 graduate students and postdoctorals at the meeting, which has environmental concerns as a salient theme.